1997 Aspen Winter Astrophysics Conference

Form 10 Abstract Proposal AST 97-00644 PI: Pierre Ramond Institution: Aspen Center for Physics This award supports partial travel expenses for attendees at the Aspen Winter Astrophysics Conference, to be held in Aspen, CO on 5-12 January, 1997. The theme for this year's conference is "Observational Tests of Cosmological Models". Theorists and observers will confront theories with a wide range of observational facts. Topics include: global structure; dynamical measures of dark matter density; cosmological nucleosynthesis and baryon density; galaxy structure, evolution and clustering; high redshift galaxies, star formation history, number counts; protogalactic and intergalactic media; large scale structure and galaxy clusters; and spectrum and anisotropy of cosmic background radiation.